Collaborative Research: Technology, Collaboration, and Learning: Modeling Complex International Innovation Partnerships

This project studies Complex International Innovation Partnerships (CIIPs) as an instrument for national technological development through cross-border learning. CIIPs are one approach through which countries seek to improve their technological and innovation capability in specific sectors by partnering with global experts. CIIPs are typically initiated by a learning country that is building capacity in a particular area of science, technology or innovation. When the learning country determines that the requisite expertise is not available in their country, they seek out a foreign expert partner. The two partners engage in a long term relationship during which individuals from both partners spend significant time together, working jointly in collaborative research, engineering or education activities. Typically, the expert partner provides education, mentoring or training services to representatives of the learning partner. Through this sustained interaction, each partner is impacted by the social and cultural context of the other. Many CIIPs occur in public service sectors and are led by government organizations. The project team investigates CIIPS by producing two sets of case studies via international field work. The case studies examine CIIPs that are executed as part of programs to develop space satellite capabilities and international university partnerships that seek to enhance an innovation ecosystem. Using a systems architecture framework, the project analyzes the technological, social, organizational and policy dimensions of these partnerships. The systems architecture approach synthesizes findings that build on four bodies of literature: Innovation Policy, Technology Transfer, Technological Learning, and Science and Technology Studies. The research develops a multi-stage analytic model that describes the evolution and dynamics of CIIPs; explains differences in the implementation of CIIPs; identifies insightful patterns across CIIPs; and provides initial tools to assess the extent to which CIIPs meet stakeholder objectives. The results of the study will advance scientific understanding of how science, technology and innovation can contribute to economic growth and societal progress under conditions that are globalized and necessitate continuous learning. The project is a first step in formulating a theory of CIIPs that combines their international and systemic nature.

Broader Impacts
The concept of Collaborative International Innovation Partnerships (CIIPs) describes a diverse set of Science, Technology and Innovation Policy initiatives occurring around the world. CIIPs are largely driven by the public sector and frequently relate to public goods such as education, environmental management, basic research and innovation spillovers. However, CIIPs are currently practitioner-driven and under-theorized. Policy-makers, program managers and industrial partners can benefit immediately from a sound theoretical grounding and analytic framework to inform the design and evaluation of current CIIPs. The results will also inform how CIIPs may be strategically deployed to address national priorities. The project will promote understanding across cultures and sectors by elucidating the dynamics that occur when partners from distinct cultures come together to execute a complex, sociotechnical endeavor. The project brings together two independent streams of research — on emerging satellite programs and on international university partnerships. The combined effort will provide valuable insights into commonalities across sectors. In the long term, the investigators seek to extend the models and assessment tools developed here to a broad range of countries and technology sectors. This project lays a foundation for a network of researchers studying CIIPs in different contexts.